Development of a Computerized Metabolic Map

The investigators will develop a World Wide Web site and database that will allow users to view and analyze metabolic pathways. It will be developed from their existing stand alone system which allows pathway selection, display, and assignment of reactions to different biological species. Their prototype Web site (http://pathways.stjohns.edu) allows viewing and editing biochemical reactions. Beyond incorporating all features from the stand-alone system into the new Web site, proposed extensions will provide new database and pathway analysis tools. The investigators will implement several new features such as variable hierarchies, a resolution of the polymer problem, and generalized compound classifications. Moreover, they will establish mathematical analysis modules for constructed metabolic pathways; these modules will allow the Web site users to employ Metabolic Control Analysis as well as standard enzyme kinetics calculations. In research concerning uncertain pathways, the Metabolic Control Analysis module will analyze for the possibility of branching, for channeling, and for moietyconserved cycles (e.g., NAD/NADH). This work will serve three communities: 1 the experimenter who may not be expert in the analysis itself, or who may be interested in a different pathway than the one that is usually under consideration; 2 the theoretician who wishes to verify hypotheses rapidly beyond pencil and paper calculations and to study much larger pathways, thereby leading to more critical thinking about metabolic regulation; and 3 the student who would not be able to use such analyses in the absence of an established and easily accessed system. User interaction will include construction of the pathway, updating the database, and a forum for discussion with other users. It will be possible to conduct many separate analyses on the pathways, using either existing data that may be found within the system, or data provided by the user. The graphical presentation of the pathways as well as the results of the mathematical analysis will greatly benefit both theoreticians and experimental scientists, expanding their scientific intuition as unforeseen possibilities are rigorously examined within the framework of metabolic pathways. The graphical display of chemical structures of metabolites (e.g., substrates, cofactors, and inhibitors) will allow atom-by-atom isotopic tracing. The applications of the proposed database and WWW site to biochemical education are manifold. Within a formal classroom structure, students of many biological disciplines may generate or access important known metabolic pathways. Students may also extend their knowledge of metabolism through independent study on the Web site, whether by verifying laboratory data for known pathways or by investigating hypothetical pathways. It is conceivable that textbooks in Metabolic Control Analysis may be written, utilizing this Web site as an instructional module.